NYI: Analysis and Design of Artificial Neural Networks

Siu Artificial neural networks present a new model for massively parallel computation and a promising paradigm for solving large scale optimization problems. This research is exploring the advantages of neural network-based models over conventional models for computation, and a novel design of neuromorphic computing architectures for applications in signal and image processing. A theoretical framework is being established to derive tight tradeoffs between the number of elements and the number of layers in neural networks. The results should answer some of the key open questions in the analysis of neural networks using classical mathematical tools such as rational approximation techniques and harmonic analysis.